Shear Sense Transitions Between the Brevard Zone and Linville Falls Fault

The Alleghanian Orogeny in the southern Appalachians includes both thrust fault and strike-slip fault regimes. A classic fold and thrust belt has been described in the Valley and Ridge and Blue Ridge provinces and, from seismic reflection, overthrusts have been projected beneath the Piedmont. Strike- slip has been documented in several major shear zones. However, the timing between the thrust movement and the strike-slip move- ment are controversial. This project will examine a portion of the Grandfather Mountain window near Marion, North Carolina where both the Linville Falls (thrust) fault and the Brevard (primarily strike-slip strain indicators) are in close proximity. Shear sense indicators will be mapped in an attempt to determine relative timing between the different fault types and to determine the nature of the interaction or overprinting fabric relations in such a system. Results will help resolve a long- standing question int he southern Appalachians, and should provide insight into overprinting fabric development in general.